Collaborative Research: Center for Advanced Forestry Systems

The expanded Industry/University Cooperative Research center for Advanced Forestry Systems will link four of the top forestry research programs in the US, and will expand the current Center for Tree Genetics to build on the strengths of the research programs to create a multi-university, interdisciplinary I/UCRC that will solve industry-wide problems through multi-faceted approaches. Researchers will approach questions on multiple scales, including the molecular, cellular, individual-tree, stand, and ecosystem.

The research conducted by the center will increase the competitiveness of forest products industries and forest landowners by solving problems on multiple temporal and spatial scales and determining fundamental solutions that transcend traditional species, regional, and disciplinary boundaries.